Dynamics of the Low-Frequency Variability of the Kuroshio Current System

9911268
The investigator advances the hypothesis that an important source of
decadal variability for the Kuroshio lies in the interaction of the
Kuroshio with the inertial recirculation to its immediate south.
He argues that this interaction is a possible mechanism for the rapid
transitions between two alternative persistent equilibria, one in which
the Kuroshio path is relatively straight as it flows past Japan and one
in which it develops a quasistationary southward meander. The
investigator proposes to test this hypothesis with a simplified
numerical model of the north-west Pacific, a low vertical resolution
version of MICOM. In particular, he will examine the potential
vorticity budget of the time varying Kuroshio/inertial recirculation
system. Experiments will also be made to test the influence of surface
buoyancy fluxes over the recirculation gyre on the evolution of that gyre.
The region of the Pacific concerned and its dynamical counterpart in the
North Atlantic are the locations of some of the largest air-sea heat
exchanges seen outside the tropics.